International POLAR-PALOOZA - Emphasizing the "I" in IPY & Enabling Global Conversations on the Antarctic Treaty

This proposal builds upon the current NSF funded POLAR-PALOOZA project (#0632262) extending the "Stories from a Changing Planet" to learners around the world. This project is a tour of seven nations (China, Malaysia, South Africa, Norway, Canada, Mexico, and Australia) featuring stories told by a diverse team of polar researchers who are also compelling storytellers. A museum or science center in each country serves as the host institution and local coordinator for a suite of 1-2 days of additional education and outreach activities. There are presentations for large general audiences, supplemented by small group interactions with community leaders and local media, providing opportunities to interact directly with polar experts in order to learn about these little-understood regions and to appreciate why the Poles and polar research are relevant to their lives. Special workshops for teachers, undergraduates or other audiences take advantage of the researcher's presence on site. At any one international site, no more than 2-3 of the presenters will be Americans with the rest of the team made up of researchers from the region and host nation.
In addition to the personal interactions the project will leverage the already-funded POLAR-PALOOZA deliverables, and provide museums and science centers with online access to a growing set of HD videos.